Strategic Planning for a Biological Research Field Station at Berry College

This project will support planning for a research field station at Berry College, which is located in northwestern Georgia. The campus encompasses more than 20,000 acres of undeveloped land, including 300 acres of old-growth mountain longleaf pine forest, a type of habitat that is rare in North America. The forests on the campus are home to over 600 plant and animal species, with at least 29 federally protected species, as well as many popular game species including whitetail deer and turkey. The Berry campus also includes rivers and creeks which are home to federally protected freshwater mussels and snails. Given these remarkable natural resources, Berry College will develop a five-year plan to create a research field station on campus that will foster science and deepen relationships with local partners. This strategic plan will open Berry's campus to a broader scientific community and unlock the research potential of this immense natural laboratory.

The Berry College campus encompasses more than 20,000 acres of undeveloped land supporting a mosaic of ecosystems, including mixed hardwood forest, longleaf pine stands, prairies, and wetlands, and the biodiverse Oostanaula River system. As a working forest, Berry also offers the rare opportunity to study and evaluate best management practices for timber harvesting, management, and replanting. This project will support planning for a biological field station on the campus, to maximize the scientific value of this immense natural laboratory. Through the project, Berry College will lead three coordinated activities: 1. a panel discussion at the annual meeting of the Organization of Biological Field Stations, so that Berry can learn from experienced professionals who manage biological research stations; 2. structured consultations with managers of comparable field stations, to better understand the administrative and physical infrastructure that is necessary; and 3. two professionally mediated workshops with local stakeholders and management partners. The first, smaller workshop, consisting of Berry faculty, administration, and Berry’s closest management partners, will produce a list of priorities that will inform preliminary planning and field station visits. The second, larger workshop will include a broader group of management partners and will help finalize a five-year strategic plan that articulates a formal mission and vision for the Berry College field station. This plan will incorporate a management and infrastructure roadmap that reflects the priorities, perspectives, and long-term commitments of the full range of stakeholders who depend on and contribute to Berry's unique natural laboratory. This project aligns with the NSF’s biotechnology priority area.